Minority Postdoctoral Research Fellowship

Gama-Torres 9308040 This applicant will study a novel gene regulating embryonal carcinoma cell differentiation and tumorigenesis in a mutant cell line differing in these properties from the parent cell line. Specifically, sequencing of the region of DNA flanking a single insertion mutation has revealed an open reading frame with no homology to any known mouse gene. Further analysis of the gene encoded at the disrupted locus will be pursued. This work will be conducted in the laboratory of Dr. Paulette J. McCormick at the University at Albany, State University of New York. ***